Logic-Based Database Query Languages

This project investigates the design and implementation of logic- based query languages. The goal of this research is to produce high-performance database systems with the clean, declarative character of relational systems but with far more expressive query languages. Research into the theory and algorithms necessary for the efficient implementation of such systems will be conducted. In parallel with this work, a main-memory based prototype will be implemented. The performance and expressibility of the prototype will be evaluated and compared with implementations of applications drawn from problem domains for which current relational systems are inadequate. The technical contributions of this research include the efficient implementation of declarative reasoning capabilities over complex information structures, paradigms for exploiting the computational power of multiprocessors and large memory machines used in development of extremely high-performance high- expressibility database systems. Such systems will be useful in applications raging from traditional business applications to engineering applications to knowledge bases and expert systems.